Advanced Compilation for MIMD Distributed-Memory Machines

This award is for a postdoctoral associate in Experimental Science. The associate, Chau-Wen Tseng, will be working on compiler technology for scalable parallel computers.